Nonlinear Problems of Solid Mechanics

Antman
0708180

S. S. Antman and his coworkers treat a variety of dynamical
and steady-state nonlinear problems for deformable rods, shells,
and three-dimensional solid bodies that can suffer large and
rapid deformations. The bodies are composed of nonlinearly
elastic, viscoelastic, plastic, viscoplastic, or magnetoelastic
materials. In each case, properly invariant, geometrically exact
theories encompassing general nonlinear constitutive equations
are used. The goals of these studies are to (i) discover new
nonlinear effects, (ii) determine thresholds in constitutive
equations separating qualitatively different responses, (iii)
determine general classes of constitutive equations that are both
physically and mathematically natural, (iv) examine and predict
important kinds of instabilities, (v) determine how existence,
regularity, and well-posedness of solutions of the governing
quasilinear systems of partial differential equations depend on
material behavior, (vi) contribute to the theory of shocks and
dissipative mechanisms in solids, and (vii) develop new methods
of nonlinear analysis and of effective computation for problems
of solid mechanics. Antman is continuing to make carefully
formulated physical theories accessible to mathematicians, and to
make modern techniques of applicable analysis accessible to
scientists and engineers, with special attention to graduate
students.

S. S. Antman and his coworkers develop powerful new
mathematical methods for analyzing the large and rapid
deformations of solid bodies. This work has applications both to
new technological materials including "smart" materials and to
old biological materials, such as living tissue. (Although it
has been known for 50 years how to derive the equations governing
such deformations cleanly from first principles without ad hoc
approximations, the mathematical tools for treating these
equations are only now being developed and refined.) The
specific problems under study include (1) the deformation of thin
shell-like bodies in a fluid flow, (2) the loss of stability of
such a shell subjected to pulsating pressures, (3) the swimming
of eels, (4) the rigorous justification of useful approximations
for the motions of the body when the loads it bears are applied
slowly or when the loads are very large or when the body is of
light weight, (5) the buckling of shells, (6) strange effects for
spinning bodies, (7) the development and the preclusion of shocks
(which are large and sudden discontinuities in velocity and
deformation), and (8) the construction of effective methods of
computation. Antman is continuing to make carefully formulated
physical theories accessible to mathematicians, and to make
modern techniques of applicable mathematics accessible to
scientists and engineers, with special attention to graduate
students.